ITR/PE(CISE): Tutoring Explanation and Discovery Learning: Achieving Deep Understanding through Tutuorial Dialog

EIA-0113864
Vincent Aleven
Carnegie Mellon University

ITR/PE(CISE): Tutoring Explanation and Discovery Learning: Achieving Deep Understanding through Tutorial Dialog

This multidisciplinary research project will develop new instructional software, which will be evaluated in actual classrooms. The project will yield research advances in computer science, education, and cognitive psychology. With respect to education, the project will develop and test new methods of instruction, namely, "tutoring at the explanation level". These methods aim to achieve deeper student understanding, resulting in better memory (retention) of the acquired knowledge, as well as the ability to apply what was learned to unfamiliar problems (transfer). With respect to computer science, this project will advance the state-of-the-art in intelligent tutoring systems through the incorporation of natural language processing techniques for assessing student explanations and improving them through dialog. With respect to cognitive psychology, this project will create and test cognitive models of how student understanding emerges from an integration of explicit-verbal and implicit-perceptual learning processes.